Mathematical Sciences: Symposium on Diphantine Problems in honored of Wolfgang Schmidt's 60th Birthday

9314428 Grant From 25 June to 1 July 1994, the University of Colorado will host on its Boulder campus a conference entitled: "Symposium on Diophantine Problems in honor of Wolfgang Schmidt's 60th Birthday." Diophantine Problems are of three types: 1)Diophantine equations, which ask how many and which whole numbers satisfy given polynomials equations with whole number coefficients; 2)Diophantine approximation, which at its base asks how well real numbers can be approximated by ratios of whole numbers; and 3)Diophantine geometry, which studies the number of regularly spaced points within certain geometric objects. Recently some remarkable results have been established in these fields, and it seems an appropriate time to bring together the leading mathematicians in these areas, so that they can interact with each other and disseminate ideas to young researchers. It is a happy coincidence that this era of rapid progress coincides with Schmidt's 60th birthday. ***